Using Guided Nature Experiences To Engage 18-25 Year-Olds in STEM and Climate Science Content

The U.S. Fish and Wildlife Service estimates that over 41 million people connect to nature through birding. Learning about birds in their natural environments offers opportunities for informal engagement in STEM by a broad range of individuals and groups. Birders often engage in scientific data gathering and analyses, geolocation and remote sensing, and phenology. They also become aware of ecological changes in bird habitats and migratory patterns due to rising temperatures and climate-related events like sea level rise, droughts, fires, and extreme weather. As such, the birding community is an ideal network to better understand and communicate the impacts of climatological changes on bird populations to the public. With this Innovations in Development project, the National Audubon Society will develop a new avian-focused, conservation and climate science community science curriculum for its Nature Centers, and test the effectiveness of the curriculum in educating the public about avian-focused conservation and climatological changes through guided nature experiences. Birding can serve as a pivotal entrée for young people into STEM fields and careers. Through its programs and partnerships, Audubon will leverage its national network to ensure that through this project a more diverse group of voices – particularly young adults and young adults of color – become involved in asking critical questions and developing solutions to address important environmental issues of the future. If successful, the broader impacts of this project on capacity building and public engagement could be far-reaching and long-lasting.

Over the three-year project duration, Audubon will bring educators from its nationwide network of thirty-four Nature Centers (including urban, suburban, and rural sites), together with over 510 young adults (ages 18-25) from its network of college campus chapters. An evidence-based curriculum and community science activities will be created and tested, relying heavily on a team of experts in ornithology, climate science research, STEM curriculum design, diversity, and informal science education. College students will advise on the design of content and activities to effectively interest and engage young adults. These students will be recruited from the new Audubon Campus Chapters Program, which includes 111 college and university campuses – among them, 19 Historically Black Colleges and Universities (HBCUs) and other Minority Serving Institutions (MSIs). The target population will be surveyed to also understand their current and likely participation in guided nature experiences and knowledge base in climate science. Current best practices in guided nature experiences will be gathered from across the Audubon network. The implementation efforts will result in a national STEM model, with train-the-trainer guides and workshops for informal science educators and public engagement opportunities focused on improving the state and condition of avian habitats and communities through climate science research. An external evaluation will be conducted and will include data collection methods such as retrospective pre and post surveys, semi-structured interviews, focus groups, and an embedded assessment to determine impact. The findings will be used to iteratively refine the evidence-based curriculum and measure STEM learning outcomes for the guided nature experience participants. The evaluation will address four areas: (1) fidelity of program implementation to promote accountability; (2) formative evaluation to understand needs and interests of young adults (ages 18-25), and subsequently inform program design; (3) outcomes for Center educators, to inform iterative improvement; and (4) outcomes for program participants, to contribute to the growing knowledge base on effective practices for STEM learning in informal settings.

This Innovations in Development project is funded by the Advancing Informal STEM Learning (AISL) program, which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. This includes providing multiple pathways for broadening access to and engagement in STEM learning experiences, advancing innovative research on and assessment of STEM learning in informal environments, and developing understandings of deeper learning by participants.